Next Generation Software: ERF: An Event-Rule Framework for Supporting Heterogeneous Distributed Systems

EIA-9974979
Javier Arroyo-Figueroa
University of Puerto Rico-Mayaguez

Next Generation Software: ERF: An Event-Rule Framework for Supporting Heterogeneous Distributed Systems

This proposal presents a plan for research and development of an Event-Rule framework (ERF) which comprises of a set of services and tools for supporting the development of heterogeneous distributed systems (HDS). The proposed research aims to study design alternatives, algorithms, applications, and implementation issues to accomplish the following objectives: 1) a high-level object-oriented specification model; 2) support for multiple standards 3) events and rules used as paradigm for specification f behavior of a HDS 4) a Rule-Based Intelligent Event Service (RUBIES) which provides methods for rule definition, event notification (posting) registration and rule management; and 5) an integrated development environment (IDE) with tools for specifying the structure and behavior, and for the run-time monitoring and maintenance of an HDS.